AAAI 2011 Robotics Program

The 2011 AAAI Robotics Exhibition and Workshop (San Francisco, CA August 7-11, 2011) continues a focus on key research problems in manipulation and learning through challenges in: (1) humanoid robotics, (2) learning by demonstration, and (3) samll-scale manipulation (robot chess). The teams selected for each challenge define research problems and repeatable experiments in areas that drive autonomous assistance in both military and domestic needs. The workshop enhances the challenge goals by (1) creating awareness in the larger AI community of available software tools, and (2) crafts a roadmap for development platforms that are more accessible to the general computer science research community.

A significant number of hands-on exhibits complement the workshop discussions and panel. Here, research teams showcase working demonstrations that support the challenge themes of learning, teaming and manipulation. Exhibits are on display for 2 full days during the AAAI Conference, providing an excellent opportunity to engage a broad technical audience. The exhibits are open to the general public to raise awareness of the state-of-the-art in robotics. Students from local schools and summer camps visit. Access to the exhibits provides an opportunity for students and leaders to learn how robotics and AI play important roles in society.